Surgery L-Groups, Algebraic K-Groups and Rigidity of Classical Aspherical Manifolds

9704765 Jones The Borel Conjecture states that any aspherical closed manifold should be topologically determined by its fundamental group. This research project will provide a new geometric tool that will enable the investigator to verify this conjecture for any aspherical closed manifold whose fundamental group is isomorphic to the fundamental group of a non-positively curved Riemannian manifold. The geometric tool consists of a generalization of the geometric collapsing theory developed by the geometers Cheeger-Fukaya-Gromov and others. In this project L. E. Jones (in collaboration with F. T. Farrell) will develop a collapsing theory for foliated Riemannian manifolds. A "two-dimensional manifold" is a "space" that looks exactly like the Euclidean plane to an observer near any point in the space, but which when observed as a whole may not be Euclidean space at all. For example the earth's surface looks like a flat plane if we are actually on its surface, but when observed from space, it is seen to be a sphere. Two-dimensional manifolds were already well understood by mathematicians of the 19th century. There are also 3-dimensional manifolds, 4-dimensional manifolds, etc., manifolds that are less well understood; in fact, the mathematician's quest to understand higher dimensional manifolds has motivated much of the topological research of the 20th century. One way to investigate the nature of a manifold is to focus on an associated algebraic object (that is much easier to understand) called its "fundamental group." A famous mathematical conjecture states that for a special class of higher dimensional manifolds (called "aspherical manifolds"), the fundamental group should act like a genetic code for the manifold, revealing all of its inner topological secrets. The aim of this project is to verify this conjecture. ***